Mathematical Sciences: Set Theory: Presidential Young Investigator Award

Original abstract under grant number DMS-8452019 is still valid. Professor Woodin has transferred from California Institute of Technology to the University of California at Berkeley.